Mathematical Sciences: Parabolic Stochastic Partial Differential Equations

The principal investigator will continue to develop the theory of stochastic partial differential equations (SPDE's). Random fields governed by SPDE's have been used intensively in physics, biology, chemistry, and electrical engineering as models for various random phenomena. Substantial progress in this field has been made in the last decade, but still the theory is in its infancy. The investigator plans to continue his research in several related areas of linear and non-linear SPDE's.